Workshop on Information Processing in the Biological Organism

0331276
Fred Roberts, DIMACS
Workshop on Information Processing in the Biological Organism

A workshop on Information Processing in the Biological Organism will bring together internationally known experts in systems biology. The workshop will investigate information processing in biological organisms from the general point of view of systems biology. The workshop will discuss model systems concerning information processing in the biological organism, the mathematical foundations and algorithms of broad and central utility for this topic, the next generation of reference resources needed for it, and how the topic might inform other disciplines, including computer science. Issues to be emphasized include gene-to-product information flows, signal fusion within the cell, cell-to-cell communication, and information flow at the system level, including environmental interaction. A report summarizing the workshop recommendations will be presented to the Fall BISTIC Symposium.